Recruiting Engineers to ACHieve (REACH)

Interdisciplinary (99)

Recruiting Engineers to Achieve (ReACH) is a program recruiting students with academic talent and financial need into the College of Engineering and Applied Science. Scholarships are provided to fourteen eligible students in cohorts of incoming students. Support programs include learning-centered interaction with faculty and academic peers, faculty mentoring, undergraduate research opportunities, industry internships, and facilitated access to university services such as career counseling and job placement. The scholarship program is responding to the national challenge of preparing more engineers to the STEM workforce.